Mathematical Sciences: Exact Analysis of Lattice-Statistics Models and Applications to Biomembranes

Professors Perk, Au-Yang, and Scott will study exactly soluble two dimensional models in statistical mechanics. In particular, they will investigate the higher genus solutions of the Yang-Baxter equations in the chiral Potts model. Furthermore, they will study the spin-spin correlation functions of the Z-invariant inhomogeneous Ising model on an irregular lattice. The exact results in the chiral Potts model will be applied to biomembranes through the model of Scott and Pearce. This work promises to add new in-depth understanding of the "ripple" phase which occurs in biomembranes. This project is an interdisciplinary one involving mathematical physics, condensed matter theory, and biophysics. The interplay of mathematics and statistical mechanics could lead to new developments in pure mathematics in areas such as knot theory and the theory of theta functions. The study of exactly soluble two dimensional models in condensed matter could illuminate the subject of biomembranes in areas which are not directly accessible to computations.